Institute for Pure and Applied Mathematics

Abstract

Proposal: 9810282 Date: 03-09-1999
PI: Green and Tadmore Institution: University of
California at Los Angeles

The Institute for Pure and Applied Mathematics (IPAM) is an institute at the University of California-Los Angeles, and is directed by Dr. Eitan Tadmor and Dr. Mark Green. This institute is designed to encourage cross-fertilization between pure and applied mathematics and other areas of science. IPAM is supported as a Mathematical Sciences Research Institute and is funded by the Division of Mathematical Sciences.

IPAM will host two or three intensive scientific programs each year designed to forge links across fields. Each program will bring in four experts and ten postdoctoral scholars interested in learning the area. Half of these will be mathematicians and half will come from the scientific disciplines related to the program. Each program will have two streams, one with a mathematical flavor and the other focusing on the scientific problems addressed. A program will consist of tutorials from both streams, followed by seminars and conferences, and culminating in a one-week conference at Lake Arrowhead.

IPAM will have no permanent faculty. A vertically integrated group of fourteen scholars from the mathematics and scientific community will spend an intensive ten-week period at IPAM being exposed to an interdisciplinary topic. This group will be supplemented by a hundred visitors coming for shorter periods of time.